Collaborative Research: An Observational Network to Enable Investigations of Gravity-Wave and Storm-Time Impacts on the Mid-Latitude Thermosphere-Ionosphere

This project will enable upper atmospheric investigations by operating a network of scientific instruments to observe the light from airglow and aurora at night across the continental United States. The earth’s upper atmosphere receives energy and momentum inputs from above and below, which manifest in the form of traveling atmospheric/ionospheric disturbances in the thermosphere-ionosphere region. The observations from this network allow researchers to understand how energetic events in the lower atmosphere and the sun impact the upper atmosphere over the United States. The disturbances in the upper atmosphere can affect widely used technological systems, such as radio communication, navigation, and power distribution networks. Broader impacts of the project include open curated datasets, open-source software repository, and training the next generation of scientists and undergraduate students.

The team will operate and maintain an instrument network which includes both red- and green-line all sky imagers and Fabry-Perot Interferometers, maintain the data infrastructure to collect and share the data with the broader scientific community, create higher-level data products, and interface with scientists and general public. The project will advance our understanding of the geophysical and geomagnetic processes in the nighttime mid-latitude ionosphere. The instrument network enables the following scientific investigations: (1) determine spatial scales of the lower and upper thermospheric winds, (2) investigate vertical propagation of thermospheric variability relative to ionospheric F-region dynamics, and (3) study the relative impact of lower atmospheric forcing with respect to magnetospheric forcing on the mid-latitude thermosphere and ionosphere.